High Resolution Radar Profiling of the Snow and Ice Stratigraphy beneath the ITASE Traverses, West Antarctic Ice Sheet

This award supports a program of high resolution radar profiling of the snow and ice stratigraphy beneath the traverse routes in West Antarctica that will be part of the U.S. component of the International Trans-Antarctic Scientific Expedition (US ITASE). A coherent, short-pulse radar with a 400 MHz antenna will be the primary tool. The system will allow real time monitoring in a horizontally scrolled display and will provide exceptional vertical resolution (tens of centimeters) and a penetration depth on the order of 50-70 meters. The primary analysis tool will be simple data compression (stacking), which will reveal subtle deformational features and long distance trends. Advance crevasse detection will be one useful operational aspect of having this system along as part of the ITASE traverses. Isochronal continuity will be interpreted from the continuity in reflection horizons between core sites.